3D Structure of Eukaryotic Flagellum

Using vitrified specimens and special ultrastructural techniques, this project will investigate structure of the native intact eukaryotic flagellum and that of the major components participating in its movement. The high-resolution three- dimensional images that are possible to be obtained with this technique will contribute to our understanding of microtubule- based motility.